A Research Experiences for Undergraduates Workshop

This award provides funding to Ann Becker and Associates, Inc. (ABA) to assist with the planning of the Directorate for Engineering, 2000 Research Experiences for Undergraduates (REU) Workshop which will be held at the National Science Foundation on Friday, April 28, 2000.